Teacher Enhancement At Laredo State University, Laredo, Texas

This planning grant will lead to a proposal from Laredo State University for teacher enhancement in south Texas. Faculty from each related disciplines are released .25 to work on the proposal and teachers from the communities are given five substitute days to attend the planning meetings. The goal is to write a proposal which will address the region's needs and significantly enhance the content, instructional strategies, materials, and awareness of Hispanic contributions in mathematics, computer science, chemistry, physics and biological sciences. No cost sharing is included in this proposal.